Hybrid Systems Workshop to be held In Ithaca, New York, October 12-14, l996

9632674 Nerode The objective is to support "Hybrid Systems and Autonomous Control Workshop" (HSAC96), on Oct 12-14, 1996 in Ithaca, NY. Hybrid systems are interacting networks of digital and continuous systems. Hybrid systems arise throughout business and industry in such areas as interactive distributed simulation, traffic control, plant process control, military command and control, aircraft and robot design, and path planning. The fundamental problem of hybrid system is: given the performance specification of one or a network of physical systems and a performance specification for the system, extract digital control programs which will force the network to obey its performance specifications. This rapidly developing area is at the interface of control, engineering and computer science. ***